A Peer Reviewed Electronic Journal of Earth System Science Education Resources (JESSE)

9907764
Johnson

This award supports a planning process for a peer reviewed online Journal of Earth System Science Education (JESSE) for the purpose of creating a common repository of quality Earth system science education resources for undergraduate and graduate classroom instruction. JESSE peer review will offer to the authors of these materials the recognition deserved for their commitment to education, and may assist in institutional reward and tenure decisions. An editorial/advisory board has been established to refine and implement the review process and establish review criteria, including content accuracy, pedagogical effectiveness and presentation format/ease of use. An innovative and open peer review process will be implemented, encouraging reviewer-developer communication, with provision for confidential exchange. Final reviewer attribution will be on open record to optimize commentary and exchange among authors and users. JESSE will draw upon the experience of the ongoing ESSE network of institutions, and will work in close coordination with the proposed Geoscience Digital Library (GDL). JESSE will also work in close coordination with the Columbia University Press Columbia Earthscape project, and interactive library resource on the global environment also under development. JESSE aims to develop a common review mechanism for each of these efforts.